Contemporary Mathematics and Technology as a Driving Force for Change

This project seeks to infuse into the secondary school mathematics curriculum concepts and techniques from the modern topics of dynamical systems and fractal geometry. The purpose is to modernize the existing curriculum and more fully motivate the study of traditional topics. Computers, software, and related equipment provide the vehicles for exploring the new mathematics concepts as well as offer opportunities for flexible instructional systems at the school level. The project's format is to work with many teachers (grades 7-12) from single districts rather than single teachers from many districts. This is a collaborative effort between Boston University, the Belmont School System and the Boston School System. All of the junior and senior high schools in the Belmont District and four schools in the Boston District are involved in the project. Beginning in the summer of 1990, a set of seminars will be offered to teams of teachers (45 total) from these schools. This set of participants will remain with the project for its four year duration. They deal with the essential ideas from dynamical systems and fractal geometry as well as didactical issues involving innovative teaching techniques afforded by the existing technology. Teachers will work in the technology classroom and the computer labs at the university during the summer months and during monthly meetings throughout the year. The seminars provide the teachers with a knowledge base in the new mathematics topics as well as practical experience in using the technology. The districts will emulate the technology application as it is appropriate for their local situations. The goals of the project are that: 1) the mathematics curriculum at the district schools will be modified to incorporate the new mathematics as well to more fully motivate the mastery and application of traditional skills; 2) the teachers will learn and have confidence with new mathematics and be able to apply new instructional strategies with their students; and 3) the dynamics of the schools involved will change to more effectively provide mathematics learning experiences within a multiplicity of formats for their students. Costs sharing in an amount of $371,982 represents 29% of the NSF award.